Collaborative Research: PHANTOME: PHage ANnotation TOols and MEthods

Proposal Title: Collaborative Research: PHANTOME: PHage Annotation Tools
and Methods
Institution: San Diego State University Foundation
Abstract Date: 03/09/09
Viruses are the most abundant biological entities on the planet. Since the most
abundant living organisms on Earth are bacteria, the majority of these viruses are
phages, the viruses which infect bacteria. Through their diverse lifestyles and gene
products, phages play important roles in horizontal gene exchange, in structuring
natural microbial communities, and in global biogeochemical cycles. Phages carry
genes for some of the deadliest toxins known and can also carry genes which confer
adaptive advantages to the hosts they infect. Furthermore, phage genes and the
proteins they encode are the outcome of evolution over eons, the products of which we
would be able to exploit if only we could decode the information in the phage DNA
sequences. The number of available phage genome sequences is increasing rapidly; on
the other hand, they represent the largest global reservoir of uncharacterized genetic
material. Bioinformatic tools necessary for interpreting this data has lagged behind the
growth in genome sequences. Grants to develop a platform and toolbox of
computational tools for phage genome analysis have been awarded to support
collaborative research in the laboratories of Drs. Robert Edwards, Department of
Computer Sciences, San Diego State University, Mya Breitbart, College of Marine
Sciences, University of South Florida, Jeffrey Elhai, Biology Department, Virginia
Commonwealth University and Matthew Sullivan, Department of Ecology and
Evolutionary Biology, University of Arizona. Dr. Elhai is an Associate Professor, the
other three investigators are Assistant Professors. This collaborative project is creating
new computational tools to establish a consistent nomenclature for phage genomes, to
annotate phage sequences, both from completely sequenced phage genomes and from
environmental phage metagenome sequences. Most importantly, this project will
engage a wide spectrum of researchers, regardless of their computational background,
to access the wealth of information contained in phage genomes through familiar
graphical interfaces. These collaborators have developed an extensive and far-reaching
education plan that targets high school students, undergraduate students and graduate
students. The students trained in the use of the tools will rotate into trainer roles via user
forums and workshops. The postdocs will be working across all the labs and thereby
gain an unparalleled panoramic view of phage biology.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0850356 PI Name:Edwards, Robert
Printed from eJacket: 03/10/09 Page 1 of 1